Planning Grant: SMART Parents

9705375 Berg This planning project, sponsored by Community School District #18 of the New York City Schools, will carry out planning activities intended to implement a district-wide parent involvement program as a supplement to the Science in the Seamless Day program currently in effect with NSF support. The planning activities will include day-long planning seminars with teachers and staff, ongoing planning sessions with parents, after school materials development sessions, travel to the Chicago TAMS project and travel to local science, math and technology resource institutions. The final proposal will include parent preparation and training activities, family "discovery" workshops, take-home activities and parent leadership development. The project staff will be helped by a wide variety of partners which have been active in district programs. The matching funds constitute about 10% of the NSF award.